Group Decision Making and Group Decision Support Systems

Society is experiencing the emergence of a post-industrial era characterized by greater knowledge, complexity, and turbulence. One effect of this trend is that decision-related meetings are becoming more frequent and more important. At the same time, the decisions confronting groups are becoming more complex and must be made more quickly, and with greater participation than in the past. As part of the transition into this new age, organizational scientists are exploring advanced technologies that might facilitate effective and efficient group meetings. One such technology is the Group Decision Support System (GDSS), a computer-based system that attempts to facilitate communication and provide decision support for meetings. This multi-year project drawing on the management science, speech communication, and strategic planning disciplines will test and refine a theory of how groups use and adapt to group decision and support system. Decision makers have already taken advantage of this new technology and will do so increasingly in the future. The project has the following long-range goals: (1) to build a general theory of GDSSs and other social technologies; (2) to identify design factors that contribute to GDSS effectiveness; and (3) to discover possible problems with GDSSs, so decision-makers can guard against them. The research will focus on decision outcomes such as quality, efficiency, commitment, and team building as a result of how GDSSs influence group interaction processes and how groups adapt and change the GDSS as they use it. In the early years of the project, a series of laboratory experiments will systematically vary the design of the GDSS, the extent of the decision network, and the group context. As the project progresses, the research will move into the field with the goal of expanding the theory to include the larger social context of the organization.